On the Behavior of Solutions of Einstein

Prof. Isenberg will continue a program of research which focuses primarily on the study of the behavior of cosmological solutions of Einstein's equations. Employing tools from geometrical analysis and nonlinear partial differential equation theory, his research involves the study of solutions of the Einstein constraint equations, the study of long-time existence and behavior of solutions of the Einstein field equations near singular regions as well as near asymptotic expansion regions, and the study of spacetimes with Cauchy horizons. This research program also includes analysis of other geometrically-based partial differential equations, including Ricci flow and wave maps. Einstein's field equations, besides providing the best current description of the behavior of gravitational physics on the astrophysical and cosmological scales, is also the source of a rich collection of mathematically interesting questions. This project seeks support for a program of research which focuses on some of these. Part of the aim of this proposed work is to increase the interaction of ideas and tools in mathematics and theoretical physics.